Shipboard Scientific Support Equipment in Support of the R/V FG Walton Smith

ABSTRACT

03 August 2012
Proposal Number: 1227774
Institution: University of Miami
PI: R. Kniffin

This proposal requests two Shipboard Scientific Support Equipment (SSSE) items for the R/V WALTON SMITH which is operated by the University of Miami; namely a new reverse osmosis water maker and engineering evaluations of the aft deck cranes for compliance with emergent UNOLS Research Vessel Safety Standards. These items will either improve safety or enhance the vessel’s science support capability.

Broader Impacts: The R/V WALTON SMITH supports federally funded scientific research in the southern Atlantic Ocean and the Gulf of Mexico in order to expand human knowledge of the ocean environment. During operations, the vessel routinely exposes graduate and undergraduate students to seagoing oceanography. Pubic outreach is also achieved through real-time satellite connectivity from ship to shore, open house events, and educational cruises. The WALTON SMITH is scheduled to complete approximately 40 NSF sponsored days in 2012.